Creep Crack Propagation and Interaction in Stiff Clays Forming Earth Dams

Many failures and accidents in earth dams and their foundations have been attributed to concentrated water leaks caused by cracks present in the compacted clays forming the earth dams. Insufficient attention has been given by researchers of earth dam safety to the topic of time-dependent crack growth and interaction in stiff clays such as those forming part of earth dams. This will be addressed in this project. Specifically, the project will study in the laboratory the mechanisms by which cracks grow and interact in prismatic samples of brittle clay subjected to constant (creep) as well as statically increasing biaxial and triaxial stress conditions, and study the effect that parameters such as clay water content, number of cracks as well as their orientation, length, separation and overlap have on the way cracks propagate and interact in brittle clay samples.